Studies in Theoretical Particle Physics

This project includes research in theoretical particle physics, and also in aspects of astro- and nuclear physics, within the Institute for Theoretical Physics at Stanford University. One aim of this research is to go beyond the Standard Model of particle interactions to investigate the origins of electroweak symmetry breaking, CP violation, and fermion mass matrices. The emphasis of this research is on searching for new effects which can be experimentally tested in precision accelerator experiments and rare decays. Another goal is to use effective chiral Lagrangian techniques to study observable effects of kaon condensation on neutron star cooling, supernovae, and heavy ion experiments. This project should aid in increasing our understanding of basic physical processes involving elementary particles and in identifying tests of theories in the context of both a broad range of accelerators and of observation of stellar bodies.